Workshop to Explore Research Frontiers of Compressed Earth Block Construction Materials: University of Colorado: Boulder, Colorado; May 24-26, 2010

The research objectives of this workshop are to establish a global knowledge base for compressed earth block (CEB) technologies, to identify research opportunities exposed by knowledge gaps, to determine interdisciplinary and/or collaborative research opportunities, and to determine accessible methods of communication for research findings. The three-day, hands-on workshop will bring together civil and geotechnical engineering and architecture faculty from around the world to discuss the research objectives in the context of engineering research labs. Particular focus will be given to earthquake resistant design, non-conventional environmental adaptation, and the effects of global climate change on traditional earthen construction. Extensive documentation of the workshop will be developed as a white paper for publication and the information from the workshop will provide the content basis for a new website designed as a living document to receive new information and research.

The world-wide demand for basic shelter has never been greater. CEB construction is characterized by its sustainability, energy efficiency and low cost. By communicating international standards for engineering and design, this workshop will provide real-world benefits for safe and affordable housing. By identifying new research opportunities, this workshop aspires to bring CEB technologies to a broader international audience, especially in developing communities. The findings of this workshop will have an immediate impact. A concurrent workshop, funded by the Bureau of Indian Affairs, will bring together representatives from Native American college construction programs to discuss developing programs in CEB production and construction.